Diffusion and Reaction in Heterogeneous Media

This project deals with theoretical and experimental studies of diffusion and reaction in heteroeneous media. The effect of homogeneous and heterogeneous reactions on the diffusive process in two-and three-phase systems is considered, as well as an exploration of the influence of membrane resistance on the process of diffusion and reaction. The method of volume-averaging will be used to develop one-equation and two-equation models of transport in heterogeneous media. Expressions for effective transport parameters will be derived and the constraints associated with the derived equations will be obtained. The experimental program includes an investigation of diffusion in passive and reactive heterogeneous systems and heat conduction in three-phase systems. Carbon dioxide transport through thin films of microcapsular suspension is studied in a diffusion cell to obtain effective permeabilities. Diffusion of phenol in double emulsions in a batch reactor is investigated to obtain effective diffusivities and effective chemical reaction rate constants. Finally, steady state heat conduction in three-phase systems is measured to obtain effective conductivities.